Efficient Numerical Methods for Time-harmonic Acoustic Wave Propagation

The proposed reserch develops and analyzes efficient numerical methods
for time-harmonic acoustic wave propagation problems in fluids and solids.
Particularly, exterior two-dimensional and three-dimensional problems for
acoustic scattering in inhomogenous media and fluid-structure scattering
are considered. The discretization of the governing PDE models is performed
using finite elements on orthogonal rectangular meshes with local adaptation
to boundaries and interfaces. Special phase error reducing low-order finite
elements are studied and employed. The aim is to solve three-dimensional
time-harmonic wave propagation problems in which the diameter of the
computational domain is from tens to hundreds wavelengths. These problems
lead to very large systems of linear equations which can have from millions
to several billions unknowns. Numerical methods for this frequency range
are under active research, and no efficient method still seem to exist.
The large scale linear systems are solved iteratively with a Schwarz-type
domain decomposition preconditioner. Very efficient subdomain preconditioners
are constructed using fast direct solvers by means of domain embedding.
This novelty makes the proposed approach very fast. The conditioning of
preconditioned systems are analyzed for suitable model problems. The
resulting methods are constructed in such a way that the iterations can
be carried out on a small sparse subspace related to the interfaces.

The studied scattering problems arise routinely in many disciplines.
Due to limitations of contemporary methods and computational resources
many of these problems cannot be solved in practice. The aim of this
research is to develop numerical methods which enable the solution of
many of these large problems. The first class of studied model problems
are acoustical geological surveys employed in oil exploration. Currently
it is necessary to use crude methods for surveys which are in many
cases inaccurate. The developed methods can eventually lead to improved
yield in the extraction of oil and reduced environmental impact.
The second class of model problems describe scattering by elastic objects
like mines in seabed. Mines have been the single largest cause of fatalities
in naval warfare. This part of the research is conducted in cooperation
with researchers at a Navy research center and it is closely related to
a project funded by the Office of Naval Research. A broader goal of this
activity is develop computational methods which help to enhance the
detection and identification capabilities of mines in seabed.